Chemistry Concepts and Connections for Teacher Leaders

This four-year program prepares 128 high school chemistry teachers with the content knowledge, instructional and leadership skills and confidence to serve as peer mentors/collegial coaches, workshop presenters and agents of change in their schools.

These lead teachers will be provided with in-depth chemical knowledge, as well as skills to implement standards-based instruction and assessment. The skills and knowledge to serve as mentor, coaches, presenters and change agents for novice teachers will also be enhanced.

The program is composed of a 3-week summer institute each of 2 summers with extensive academic year follow up through electronic networking, on-line mentoring, workshops, newsletters and classroom visits.